Characterization of a Cytoplasmically Inherited Mututation, Cyt-G1

This is a Research Opportunities for Women Career Advancement Award, to enable her to carry out important studies on cytoplasmic (chloroplast-mediated) inheritance in soybeans. Dr. Walling is at a critical stage in her career, and the research she will do with this award is anticipated to boost her career substantially.